U.S.-China Cooperative Research: Transient Electromagnetic Research

This is a two-year collaborative research project between Dr. Gerald W. Hohmann, University of Utah and Professor He Jishan, Central South University of Technology. This study plans to improve the resolution and exploration of transient electro-magnetic techniques (TEM). Dr. Hohmann has developed a state of the art of computer program for interpreting electrical conductivity data but has no field data to verify the model. His Chinese collaborator at the Central South University of Technology (CSUT) has been carrying out electromagnetic field studies in China for several years and plans to conduct field measurements using the newly purchased multi-purpose electromagnetic receiver. This is a collabora- tive study jointly supported by the NSF and the Chinese State Education Commission. The study will greatly benefit both U.S. and Chinese scientists.